Collaborative Research: Controls on hyporheic nitrate retention - discriminating among transport, reaction-rate, and substrate limitation

0409591
Gooseff
The transport and fate of nitrogen in stream networks is critical to understanding watershed exports
of nitrogen. Nitrate (NO3 - ) retention, and denitrification in particular, is known to be dependent upon
a variety of factors: geochemical conditions (chiefly RedOx potential), substrate (largely availability
of NO3 - and dissolved organic carbon (DOC)), and transport of nitrate and DOC to favorable
locations for denitrification. We will examine the controls of nitrate retention in the hyporheic zones
of streams in Oregon and Wyoming: 4 forested stream reaches, 4 agricultural streams, and 4 urban
streams. Each reach will be the subject of 15 NO3 - injections in partnership with the Lotic Interbiome
Nitrogen eXperiment II (LINX II) project which is using nitrogen-15 ( 15 N) techniques to study
uptake and retention. Collaborating with LINX II allows synergistic and cost-effective examination
of stream and hyporheic nitrogen cycling. The objectives of our research are to examine the factors
controlling nitrate retention and denitrification in hyporheic zones of small streams and to quantify
the fraction of nitrate retention in these streams due to hyporheic exchange. We will test the
following hypotheses: (1) hyporheic denitrification in headwater, forested streams will be low
because of substrate and rate limitations, yet biotic assimilation will be high, relative to agricultural
and urban streams, because of inorganic N-limitation; (2) hyporheic denitrification will be greatest
in mid-network locations where surrounding land use is predominantly agricultural, however, total
loss of NO3 - will be transport-limited and biotic assimilation will be reduced because nitrogen is less
limiting; and (3) potential rate of denitrification in the hyporheic zone will be high in the urban
stream reaches, but total nitrate retention in the hyporheic zone will be low because both
denitrification and biotic assimilation will be severely transport-limited.
Elevation surveys of the longitudinal profiles of the stream reaches will be used to quantify channel
morphology and provide a base for groundwater flow and reactive transport simulations. We have
successfully used this technique to model groundwater flow and calculate hyporheic residence time
distributions [e.g., Kasahara and Wondzell, 2003; Wondzell et al., 2003]. We will use tracer tests
based on new understanding of their use for measuring residence time distributions in the hyporheic
zone [Gooseff et al., 2003; Haggerty et al., 2000; Haggerty et al., 2002].
We will couple our work to the LINX II NSF project by installing a sampling well and
piezometer network in the hyporheic zone of 12 LINX II experimental reaches in Oregon and
Wyoming. The sampling wells will provide access to hyporheic water, from which we will obtain
samples for measurement of 15 NO3 - , 15 N2(g), and 15 N2O(g) as well as DO, DOC and other physical and
geochemical parameters, which will be used to quantify biotic assimilation, denitrification, and
groundwater flow in the hyporheic zone. We will have access to LINX II stream data on these and
other (e.g., 15 NH4 + ) N-species. The work will build upon, and enhance the current LINX II project.
The LINX II project will benefit from quantification of nitrogen cycling in the hyporheic zone of 12
of its sites and will gain a method to refine models of nitrogen dynamics.
Three of the experimental reaches are on OSU campus, which allows us to use Oak Creek as a hands-
on, active-learning laboratory in 3 courses with a combined annual enrollment of more than 300
students. Through these courses, undergraduate and graduate research projects, and the participation
of undergraduates in our field work, a large number of students will gain field experience in
hydrology at experience-appropriate levels. The USU research team will continue to interact with
middle school and high school students through the Teton Science School, demonstrating field
activities and facilitating hands-on field experience for these students. Together, the OSU and USU
research teams will develop a web site with our data and project-related science activities and
dissemination of results for K-12 students and teachers, and will promote learning about surface
water hydrology and water quality in local schools through the NSF-sponsored GLOBE program.